Funding for a Conference on: Finite Geometries, Groups and Computation

An interdisciplinary conference on "Finite Geometries, Groups and Computation" will be held on September 4 - 9, 2004 at the Pingree Park Campus of Colorado State University.

Participants will include leading researchers from Europe, Asia and Australia, and
graduate students and recent PhD recipients. The invited principal speakers are
Eamonn O'Brien (Auckland), William Kantor (Eugene), Rudi Mathon (Toronto), Tim
Penttila (Perth) and Jacques Tits (Paris).

The highest funding priority is to the support of less established researchers.